Art As a Way of Knowing Conference: Artists at Work in Research and Science Education

The Exploratorium is conducting a two-day conference in the fall of 2010 that will bring together professionals from science education, science research, arts practice, educational research, and museum exhibition and education. Organized around three key themes of history of art-science collaborations, program design, and research, the conference will bring together pioneers of art-science programming and innovators in exhibits, museum education, and educational research to consider the impact of arts on the theory and practices of engaged, interactive learning in science, technology, mathematics, and engineering. The attendees will also consider future directions for art-science-education interactions. Complementary deliverables are a conference Web site and publications, as well as extensive dissemination of results to the arts, science and education communities.